Presidential Awardees Network Small District Teachers: A Conference Grant

9353414 Henry This conference grant of $74,340 to the Florida Council of Mathematics is designed to prepare 40 members of the Florida Mathematics Presidential Awardee Association (FMPAA) to serve as mathematics education reform leaders, and to conduct outreach conferences, particularly for small school districts in Florida. Over twenty months of the project, there will be a leadership conference for FMPAA members followed by five regional conferences with many of the Awardees as conference presenters. The leadership conference for the Awardees will be planned in spring and conducted in summer, 1994. During the 1994-95 school year, the grant will provide support for the Awardees to serve as presenters in five outreach conferences for teachers from small districts in Florida. Each conference will be planned for an attendance of 75 teachers from small districts with minimal mathematics education support for a total of 375 teachers impacted by the pool of 40 teacher leaders prepared. The evaluation of the conference grant will be done by evaluating the five outreach conferences conducted, the dissemination of examples of best practice through the outreach conferences, and the monitoring of small district networking activities resulting from each conference.